CAREER: Multimedia Explanation Generation for Knowledge-Based Learning Environments

Knowledge-based learning environments can provide highly customized problem-solving experiences that are tailored to the individual needs of each student. This project creates the technology for a new generation of knowledge-based learning environments by developing real-time multimedia explanation generators with animated pedagogical agents. Prominently featured in learning environments, animated pedagogical agents can observe students' progress, provide them with visually contextualized problem-solving advice, and play a powerful motivational role. The project has three major thrusts: (1) developing a computational model of real-time multimedia explanation planning for dynamically creating customized multimedia explanations; (2) developing a computational model of animated pedagogical agents; and (3) conducting empirical evaluations of the pedagogical effectiveness of these models. In addition, the project also develops a teaching laboratory for multimedia technology and initiates a new multidisciplinary course on Knowledge-Based Multimedia Learning Environments. This work significantly advances the state-of-the-art in knowledge- based learning environments and human-computer interaction. Coupled with rapid advances in affordable multimedia hardware, the successful deployment of these technologies will have a deep and lasting impact on students at all levels. By achieving significant gains in learning effectiveness, these technologies will bring about fundamental improvements in both the classroom and the workplace on a broad scale.